Scoping Workshop on Materials Engineering and Processing

The scope of the Materials Engineering and Processing Program has been broadened to address engineered materials and novel processing methods. This workshop will bring researchers from universities and industry to discuss the research needs and technological opportunities in this area. The report will be used as a basis for future research proposals.